Isotopic Studies of Oceanic Islands and Ocean Crust

In this study the PI will continue the investigation of isotopes of noble gases, such as, Helium, Xenon and Argon in oceanic rocks for which he has been continuously funded by NSF since 1983. The study would involve measurement of helium and other nobel gas isotopes and comparison of their ratios to isotopic ratios of heavy radiogenic elements such as Sr, Nd, and Pb in a variety of rocks from Tristan da Cunha and Gough, from Islands in the South Central Pacific Ocean and from the Mid ocean Ridges. The investigator also proposes to conduct helium diffusion experiments on basaltic glasses and mantle minerals by stepwise heating to understand the process of Helium migration from the mantle. The purpose of this study is to find the applicability of Helium and other noble gas isotopes in understanding the various processes and the chemical evolution in the mantle which has shown inhomogeneity in space and in time. The preliminary investigation on the Hawaiian rocks by the PI has already resulted in new findings. Dr. Kurz is a very capable scientist and has contributed substantially to the field of noble gas geochemistry. The results of his previous NSF funded studies are considered to be of high quality by the scientific community and this study has a very high chance of being successful.